Collaborative Research: Petrological and Geochemical Evolution of the Mariana Trench

9302162 Stern The PIs have completed descriptions and interpretations of dredged, bathymetry and petrology of most of the Mariana Trough. In the present project they will carry out petrological/geochemical analysis of a selected group of samples. The data will be used to model evolution of incipient back arc basins. ***